Enhanced Undergraduate Acoustics Laboratory

Cooper Union's Mechanical Engineering Department will establish an enhanced undergraduate Acoustics Laboratory. Acoustics and vibration control is increasing in prominence among the engineering disciplines. Cooper Union's enhanced and expanded acoustics/vibrations lab will permit undergraduate hands-on experience with sound intensity probes and force hammers, as well as a greater understanding of the implications of random and sine sweeps of vibration generated by a shaker . Also, the concept of modal analysis of a structure undergoing vibration is clarified by the use of an accompanying modal analysis computer program. An expanded acoustics/vibrations laboratory of this type provides undergraduate engineering students with deeper insight into the nature of the effects of oscillatory inputs, the means of measuring them and minimizing their negative consequences .